Magnetic and Mineralogical Study of Jurassic Oceanic Basalts

The study will determine rock magnetic properties and mineralogical characteristics of Jurassic basalts from ODP Leg 129 material which will lead to an understanding of magnetic properties of these basalts, the Jurassic quiet zone and the source of high remanence of old basalts.